RUI: Photoproduction of States Containing Heavy Quarks

A single investigator and undergraduates will participate in a collaborative effort at Fermilab (Experiment 687) to study the production of particles containing heavy quarks (c-quarks and b-quarks) by photons incident on various targets. A new detector facility, just brought into operation, will be used. The data obtained will be used to verify the predictions of theoretical models, to obtain production cross sections, to measure lifetime and branching fractions of particles containing the c-quark. The grant is awarded under the Research at Undergraduate Institutions program and involves undergraduates in forefront research. In particular, there will be substantial undergraduate experience with of fast computing and mass data storage.